Assessment of Drug and Electrolyte Concentrations to Integrate Concepts of Pharmacokinetics in Undergraduate Pharmacology/Pharmacokinetics Laboratory Experiments

New technology is being brought into the teaching lab for pharmacology to allow students to measure drug and electrolyte concentrations accurately, safely, and easily with minimal hazardous waste. It adds an experimental component to the teaching of pharmacokinetic concepts. Bench-top analyzers with multiple analytical capabilities permit chemical testing of blood components in a capillary tube with no plasma separtaion required. The system can be calibrated and sample concentrations are determined photometrically by a microprocessor- controlled program. The TDX system utilizes fluorescence plarization to perform chemical analyses at body temperature. The Kodak DT system is a dry-chemistry desk top analyzer with modules employing electrolyte and colorimetric tests to provide precise levels of exogenous and endogenous substances. Each system provides a print-out of sample results. These instruments are becoming more prevalent in clinics and hospitals, but can also be used creatively in teaching. The university will contribute an amount equal to the award.